Linking for Learning: Telecommunications as a Tool for Educational Reform

This is proposal for funding of a project to examine the integration of telecommunications technologies into the science and mathematics educational reform process. We propose to address a particular educational goal or strategy in order to examine the process of translating a strategy into practice through the lens of telecommunications. Through commissioned papers and seminar discussions in roundtable format among visionaries, experts critics, educators, and other participants in the educational process, the project would produce guidelines and recommendations, for both the National Science Foundation and other key leaders and organizations, of necessary actions in linking online learning to the science and mathematics educational reform process.